Travel Support for 26th Conference on Stochastic Processes and their Applications

9971023
Kurtz
The 26th Conference on Stochastic Processes and their Applications will be held in Beijing, China, from June 14-28, 1999. This conference provides a valuable opportunity for US researchers to interact with prominent researchers from other countries. This award will provide travel support for US participants. At least half of the funds will be used to provide support for junior researchers.